NSF Young Investigator

9457288 Flatau This project provides support for the principle investigations research under the NSF's 1994 Young Investigator's Award (NYI) program. The research effort will be focused on mechanical vibrations, acoustics, smart materials and smart structures, and structural control. Industry collaboration will be an important part of project, which is expected to last for 5 years. ***